CAREER: Mobility Control for Robotic Sensor Networks

This project focuses on the development of mobility strategies for
Robotic Sensor Networks (RSNs) which are networks of robots equipped
with communication, computation and sensing capabilities. For RSN
technology to be utilized in critical applications such as emergency
response and environmental monitoring, mobility algorithms for
operation in dynamic and complex environments are needed.

In this project, three novel mobility problems which arise in many RSN
applications are introduced. These problems are general enough to
capture the interplay between communication, sensing and
mobility. Yet, they can be succinctly formulated as geometric
optimization problems. This work will focus on solving these mobility
problems which will yield provably correct solutions for numerous RSN
applications. In addition, bounds on the performance of a given RSN in
fundamental problems such as tracking, collaborative sensing and
estimation will be established.

The output of this research will be a significant step toward enabling
the use of fully autonomous RSNs for crucial applications in emergency
response, energy and environmental monitoring, and health care
automation. Sensing and actuation play important roles in the
evolution of information technology. The project will contribute to
this evolution through the development of novel distributed sensing
and control algorithms.